Nonlinear Dynamics of "Triggering Controllers"

The investigator proposes to study the nonlinear dynamics and control
of a class of canonical fluid systems: flow over a backward facing
step, flow separation from two sharp convex corners of a bluff body,
and high frequency flutter of one or multiple airfoils. Here,
"Control" should not be interpreted in the traditional sense. Recent
"control" efforts have focused on triggering instabilities in the
fluid shear layers; by creating certain vortex dynamic interactions,
system performance often improves dramatically. The proposed research
seeks to gain an understanding of the nonlinear dynamic processes and
the bifurcation structure of the systems, so that it may be possible
to synthesize such triggering controllers systematically, rather than
relying on ad hoc trial and error. The approach consists of
constructing low order vortex models that capture essential features
of the systems, and then performing normal form and bifurcation
analyses. It is believed that lessons learned from the three
canonical problems to be studied here will be applicable to a broad
class of fluid flow problems whose performance is sensitive to
nonlinear vortex dynamics within shear layers. The project will
support close collaboration between the PI and United Technologies
Research Center, whose engineers/scientists are searching for
practical ways of incorporating triggering controllers into several
products. Furthermore, the proposed project will form a focal point
around which to generate several undergraduate research projects. The
PI has observed that such experiences, in which undergraduates make
meaningful contributions, often buoy their motivation and desire for
pursuing advanced degrees.